XYZ on a Chip: Microfabricated Architectures, Giant MagnetoResistive Sensors, and Magnetic Labels: A New Paradigm for Creation of a Chip-Scale Bioanalytical Laboratory

0088241
Porter
The objective of the proposed research is the design, development, and evaluation of a new paradigm for chip-scale bioanalytical laboratories. The goal is to uniquely couple the emerging fields of magnetically-based analyte labeling, DNA/protein microarray fabrication, microfluidic injection, and giant magnetoresistive sensors, forming a new class of integrated systems that address the enormous demand for high throughput sample screening in the functional genomics and proteomics arenas. These types of assays are also applicable to purity maintenance of public water and food supplies.